International Workshop on Hadrons and Strings; July 12-17, 2004; Trento, Italy

The purpose of the workshop is to discuss recent developments in our
understanding of the relationship between field theory and string
theory, with a focus on the physics of strong interactions and
QCD. The broad goal is to address and solve long-standing problems in
the physics of hadrons using emerging new methods.
The workshop is organized by the European Centre for Theoretical
Studies in Nuclear Physics and Related Areas (ECT*) in Trento (Italy)
-- one of the few Centres world-wide which provides a dedicated and
structured combination of scientific activities for a large
international scientific community. The role of the workshop in
establishing both crossdisciplinary and crossnational collaborations
will be invaluable.